NSF Young Investigator

94598356 Thompson This NYI award is to support LuAnne Thompson to undertake various process studies of isolated dynamical features (fronts and deep western boundary currents), the kinematics and dynamics of the western equatorial Atlantic and interannual variability in the tropical ocean circulation. Many of her new research areas are more physically oriented than theoretical. She has demonstrated her ability as a teacher by receiving a Danforth Distinction for Teaching award while she was at MIT. She also taught seminars as a post-doctoral fellow, and she has clearly defined her teaching plan for the University of Washington.